Undergraduate Design Projects to Aid Disabled Persons

9631786 Tahernezhadi This proposal involves hardware and software design projects for undergraduate electrical engineering students with the aim of helping persons with disabilities. The projects will benefit individuals with communicative impairment, including speech disorders, phonetic disorders, and inability to communicate due to motor disabilities. Among the devices to be developed are a software system allowing a child to practice pronunciation of word lists with minimum adult supervision; a voice communicator to be used in emergency situations without the need of American Sign Language or a TTY device; and wireless communication devices permitting a child to summon help when the caretaker is unavailable. Through their work, the students will gain valuable engineering problem-solving skills, learn to appreciate their educational experience which enabled them to assist persons with disabilities, be encouraged to continue their education in the field, and be better prepared for the competitive job market. Before the actual hardware implementation, computer simulations will be carried out by students to validate their designs. These computer programs will be used to demonstrate the projects to potential engineering students and high school graduates at events such as National Engineers' Week and college open houses. Such demonstrations will attract new students into engineering and will allow the public to have a better understanding of how engineering schools are serving the local community. ***